NSF Student Travel Grant for 2019 ACM SIGPLAN Conference on Systems, Programming, Languages and Applications: Software for Humanity (SPLASH)

The ACM SIGPLAN Conference on Systems, Programming, Languages and Applications: Software for Humanity (SPLASH) embraces all aspects of software construction and delivery to make it one of the premier conferences at the intersection of programming languages and software engineering. This grant provides travel funds to support student attendance to the conference, held at Athens, Greece during 20 - 25 October 2019. The support will cover attendance at a mentoring workshop as well as attendance at the main conference. The grant will be used for US citizens/residents, giving priority to underrepresented groups, first-time attendees, and those in need of economic support.

The grant will enable the technical exchange of information and research conversations/collaborations made possible by the conference, as well as advances in the field made possible by these interactions. The proposal also provides education, training and mentoring received by the participants. The international nature of this conference helps develop a globally-aware workforce of research and educators within the US and helps build the community of researchers in the field of Software Engineering.